Information Processing In Firms

The study of returns to scale in firms has traditionally focused on technological returns to scale in the production process. However, as the scale of a firm's production process grows, so does its administrative apparatus. The task of much of this administrative apparatus is information processing, including communication and decision-making. This task is important to the performance of the firm, and hence relevant to returns to scale. This research uses a model of stochastic control with explicit and costly computation of policies, coupled with a parallel processing model of information processing in organizations. It is expected that a variety of results will be obtained for which returns depend on assumptions on the statistical properties of the information to be processed and on the loss function. Further studies include a locational model of scale, explicit models of the firm with scale measured by physical inputs and outputs rather than by the informational size of the environment, and a distributed computational model of information processing. This research works across the frontier between computer science and economics. It relates information processing and organization design and function, and will enhance our understanding of a problem of long standing and great importance in economics.